Collaborative Research on Domestic and International Conflict Linkages

9423192 Davis Theoretical perspectives in the social sciences have traditionally treated domestic and international conflict as independent. However, the investigators contend that linkages exist and are important for understanding the dynamics of conflict at either the domestic or international levels. Recent history provides numerous examples of domestic and international conflict linkages including the Kurdish uprising in Iraq following the Gulf War, the Argentine invasion of the Falklands/Malvinas Islands, and the Contra War in Nicaragua. Yet, do such linkages exist as general patterns of conflict behavior or are they only manifest during significant events such as inter-state crises, wars, riots and rebellions? The current investigation will answer that question with respect to middle powers that are undergoing liberalization and/or facing ethno- nationalist challenges. It will also help address the weaknesses that exist within the literature by developing and testing a dynamic theory of domestic-international conflict linkages. The project has been underway for one year with support from Emory University and the Institute for Global cooperation and Conflict. During that time the investigators have specified a theoretical model, developed a coding scheme for collecting relevant data and begun the data collection on eight cases. their model builds on work in the international relations literature that examines conflictual and cooperative behavior among nation-states. In addition, the research team makes use of the recent call for two-level modelling and contend that the linkage can best be clarified by arguing that domestic groups hostile to the state, the state itself, and relevant other states in the international system all monitor, and respond to, one another's behavior in conflict situations. In other words, the investigators develop a modes where the behavior of any of these actors is argued to be conditioned by the behavior of each of the other actors. ***